Japan STA Program: Carbon Dioxide Reforming of Methane

9600283 Schmitz This award supports a 24 month Science and Technology Agency of Japan (STA) Postdoctoral Fellowship for Dr. Andrew Schmitz at the Hokkaido National Research Institute, Sapporo, Japan. Dr. Schmitz will work with Dr. Tadashi Yoshida, Director of the Macromolecular Science Section, on a research project entitled "Carbon Dioxide Reforming of Methane". The proposed research will develop techniques used in carbon dioxide reforming of methane to produce synthesis gas (carbon monoxide and hydrogen). Synthesis gas is an important feedstock for production of higher-value chemicals such as methanol, acetic acid and hydrocarbons. Consequently, carbon dioxide reforming of methane is an important step in the conversion of two greenhouse gases into useful chemicals. This reforming reaction can also be used to store energy from a solar, nuclear or fossil fuel source as chemical energy. The energy can then be released on demand by reversing the chemical reaction or by synthesis gas combustion. Carbon dioxide reforming of methane requires high reaction temperatures (in excess of 500 =BAC) where catalyst deactivation is an important concern. To identify promising multimetallic catalysts for development, research will focus on the comparative performance of candidate multimetallic catalysts with that of known monometallic catalysts for carbon dioxide reforming of methane. Catalyst activity and deactivation rate in the reforming reaction will be evaluated using a quartz-tube flow reactor. Furthermore, a study of catalyst physicochemical properties will be used to identify deactivation mechanisms and to tailor multimetallic catalyst compositions to achieve high activity and high deactivation resistance. Parameters of focus are identification of which multimetallic systems show enhanced performance compared to monometallic systems, and what relative metal concentrations are required to optimize multimetallic catalyst performance. ***